Issues in Implementation Theory

This project improves implementation theory and in this way contributes to research in the many areas of economics that rely on implementation theory. Implementation theory helps the analyst answer two questions. First, suppose that for each possible state of the environment, we have an allocation which we wish to see achieved. Can we structure the interactions of individuals so that, given their information, they choose actions which result in the desired allocation? Second, if individuals possess information about the state of the environment and interact through a given mechanism, what are the properties of the resulting allocation as a function of the state? Although implementation theory has been very successful in identifying desired (i.e., efficient or equitable) outcomes which can be implemented in different informational settings, a criticism of the theory is that the mechanisms used in the general proofs require unrealistic assumptions. The contribution of this project comes in relaxing restrictive assumptions about the way agents bargain and the ability of agents to renegotiate agreements. This project examines two issues associated with the decentralization of decision making. The first issue is designing a mechanism to implement a desired set of social alternatives with mixed strategy equilibria. More specifically, the current theory on Nash implementation identifies only pure strategy Nash equilibria as the outcomes of a mechanism. The project shows this to be inadequate and develops a framework for analyzing the role of mixed strategy equilibria. The second issue concerns the implementation question when the mechanism used for decentralization may not be binding. If mechanisms are not binding, there may be instances in which agents can gain from negotiating an alternative to the outcome suggested by the mechanism. This feeds back to affect the initial actions of agents, since they can account for the renegotiation process. The project develops a model for a dynamic setting, where agents can repeatedly interact, and where there is a cost associated with renegotiation. This model is used to analyze markets and other economic institutions.